Exploring Horizons for Domestic Animal Genomics Workshop

0136019
Kirk

A steering committee formed under the auspices of the Board on Agriculture and Natural Resources and the Board on Life Sciences will help to plan and host a workshop focusing on domestic animal genomics and its integration with other genomics and functional genomics projects. The diverse group of experts who participated in the sequencing of the human, mouse, C. elegans, Drosophila, Arabidopsis, rice, E. coli, and other genomes will be brought together with others involved in genomics mapping and sequencing for important livestock and companion animals and their pathogens. These experts, along with appropriate policy makers and stakeholders, will participate in a one-day meeting designed to 1) provide a forum for exchange among the diverse communities of genomics and functional genomics experts, 2) elicit discussions of research directions in animal genomics that would benefit agriculture and society while leading to greater biological understanding, and 3) identify opportunities and obstacles that might be encountered in developing a coordinated, multi-organism functional and comparative genomics effort that would include domestic animals.